Workshop on Bridging the Gap Between Networking Technologies and Advances at the Physical Layer

With the universal deployment of mobile and cellular communications
and the proliferation of wireless LAN technology, today's society is becoming
firmly dependent on wireless networking technologies. As wireless networking
continues to advance with new services and applications, researchers have an
increasing interest in understanding the limits of current and future wireless
networks. To a large extent, many of the performance limits associated with
wireless networks are deeply intertwined with underlying physical layer
technologies. From a research perspective, technology advances at the physical
layer usually introduce new problems at the networking layer that cannot be
addressed by simply extending existing theories and algorithms. In many cases,
due to the disruptive nature of new physical layer technologies, problems at
the network level are extremely challenging and call for the development of new
theories and algorithms. Such new theoretical developments usually require
interdisciplinary expertise in networking, wireless communications, algorithms,
and optimization.

The objective of this workshop is to gather a group of researchers from
multiple disciplines to explore the important issues involved in developing a
comprehensive future research agenda to bridge the gap between wireless
networking technologies and advances at the physical layer. A final workshop
documenting the presentations, discussions, summary, and recommendations of the
two-day workshop will be made available for public dissemination via a web
site. Our expectation is that such findings will offer timely input to the
wireless networking research community, and will have a long-term impact on
future research.